MRI: Acquisition of an Integrated SPM/Raman/SNOM System for Materials Characterization

This award is for an integrated Scanning Probe Microscope - Raman scattering - Scanning Near-field Optical Microscopy (SNOM) system for undergraduate research at Coe College. In addition, it will be used by researchers at Cornell College and Mt. Mercy University and two local companies. The instrument will allow for simultaneous spectroscopic and topological measurements in materials, and for the training of undergraduate students. Scientifically, the hybrid system will be used on laser modifications of amorphous materials; on measurements of phase separation and corrosion in technologically useful glasses; on studies of rare earth doping and clustering; on investigations of biocements; on the study of functionalized glass microspheres for catalysis applications; and, the bonding of polyoxometalates and surfaces.

The new integrated scanning probe system will impact over fifty-five undergraduate students, from the Physics, Chemistry, and Biology Departments, that participate in summer research at Coe College. Greater than 40% of the students are first generation college students from rural backgrounds with little access to research. The impact of the instrument will also extend to the regional Latino High School population through a new program led by the PI in collaboration with local Latino engineers, scientists, and educators.